Advanced Dimensional Metrology and IS09001 Educational Partnership Program

To provide employees skilled in metrology and ISO 9001 to the engineering, manufacturing, and service/installation industries. To achieve this goal, a collaboration will be established between the Machine Tool Program at Madison Area Technical College, the suppliers and users of precision measuring, the University of WI Center for Quality and Productivity Improvement, the Madison Metropolitan School District, and the WI School-To-Work Initiatives; and also articulation of participation from other secondary and postsecondary educational institutions and professional organizations. This proposal is to be a well-coordinated, highly integrated effort to: 1) Develop and disseminate curriculum materials specifically designed for technical training at the two-year associate degree level; 2) Provide teacher enhancement activities in advanced dimensional metrology and ISO 9001 that include summer institutes, mentoring and curriculum development partnerships for associate degree and secondary level school teachers; and 3) Support the development and coordination of industry-led statewide programs to offer work-based experiences for high school students; and 4) Assemble a mobile metrology laboratory to provide student education, teacher enhancement, and calibration of precision measuring tools. The proposed program will link together the development of instructional materials with faculty enhancement, student laboratory experience and school-to-work initiatives.